Highly Adaptive Science Simulations for Accessible STEM Education

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.

This project will research, design, and develop adaptive accessibility features for interactive science simulations. The proposed research will lay the foundation that advances the accessibility of complex interactives for learning and contribute to solutions to address the significant disparity in science achievement between students with and without disabilities. The PhET Interactive Simulations project at the University of Colorado Boulder and collaborators at Georgia Tech, with expertise in accessible technology and design, will form the project team. The project team will conduct design-based implementation research, where adaptive accessibility features for interactive science simulations are developed through co-design with students with disabilities and their teachers. Students will include those with dyslexia, visual impairments or blindness, and students with intellectual and developmental disabilities, ranging from 5th grade through high school, and recent high school graduates. The adaptive accessibility features will be implemented within a set of PhET interactive science simulations, and allow students with disabilities to access the science simulations with alternative input devices (such as keyboards, switches, and sip-and-puff devices), alter the visual display of the simulations (changing color contrast, zoom and enlarge, and simplify), hear different auditory representations of the visual display (descriptions, sonification, and text-to-speech), and control the rate of simulated events. All features will be capable of being turned on or off and modified on-the-fly by teachers or students through a global control panel that includes curated feature sets, resulting in highly flexible, highly accessible, interactive learning resources.

PhET simulations are widely used in US classrooms, evidence-based, aligned with standards, and highly engaging and effective learning resources. With the proposed highly adaptive features and supporting resources, teachers will be able to quickly adapt the PhET simulations to meet the needs of many students with disabilities, simplifying the task of creating differentiated learning opportunities for students and supporting students with disabilities to engage in collaborative learning - a foundational component of a high-quality STEM education - alongside their non-disabled peers. To research, design, and develop the adaptive features and investigate their use by students, project team members will co-teach in classrooms with students with disabilities and conduct co-design activities with students, where students engage in design thinking to help design and refine the adaptive features to meet identified accessibility needs (their own and those of their peers). In addition, interviews with individual students with and without disabilities will also be conducted, to test early prototypes of individual features, to later refine the layering of the many different features, and to ensure the presence of adaptive features does not negatively impact traditional use of the simulations. The proposed work also includes surveys of teachers and students and analysis of teacher use, to refine global control features, develop curated feature sets, and develop supporting teacher resources. The project will address key questions at the heart of educational design for students with diverse needs, including how to make adaptive features that support student achievement of specific learning goals. The project will use design-based implementation research, with significant co-designing with students with disabilities (including visual impairments, cognitive disabilities, or dyslexia), interviews, case studies, and classroom implementation to design and evaluate the accessibility features. This will inform new models and theories of learning with technology. The project will investigate: 1) How students engage with, use, and learn from adaptive accessibility features, 2) how adaptive accessibility features can be designed to layer harmoniously together in a learning resource, and 3) how to effectively support access to rich, dynamic feature controls and curated feature sets for intuitive classroom use by students and teachers. The project will produce 8 PhET simulations with adaptive accessibility features and supporting teacher resources. The foundational research knowledge will result in effective design and implementation of adaptive accessibility features through the analysis of student engagement, usability, and learning from accessible simulations. Additionally, the project will provide technical infrastructure, exemplars, and software for use by other STEM education technology developers. The project team will work together to create a deep understanding of how to design adaptive science simulations with practical, usable, effective accessibility, so that learners with diverse needs can advance their science content knowledge and participate in science practices alongside their peers. The work has great potential to transform STEM learning for students with disabilities and to make simulations more effective for all learners. Results will provide insight into the effectiveness of accessible simulation-based activities and their corresponding teacher materials in engaging students in science practices and learning in the classroom.